Studies of Global Electrodynamics and High Latitude Irregularities

The investigators propose to continue their current research on global ionospheric electrodynamics and on plasma waves in the high latitude ionosphere, the study of global electrodynamics use incoherent scatter radar observations. The main topics of this program include (1) studies of the latitudinal and day to day variations of the low latitude electric fields, (2) the effect of magnetospheric and disturbance dynamo electric fields at low latitudes, (3) equatorial drift and wind studies using joint measurements with the Jicamarca radar and the San Marco satellite, (4) the study of F-region dynamo electric fields and their latitudinal variation, and (5) development of an empirical model for the latitude electric fields. The research on plasma waves in the high latitude ionosphere consists of mostly analysis and interpretation of radar interferometer data from Greenland and Sweden. We also intend to continue working on the interpretation of in-situ rocket data, and to carry out theoretical studies. The main aspects of this program include (1) studies of E-region waves during periods of very large and highly variable auroral currents, (2) experimental and theoretical studies of the nonlinear saturation of two stream waves, particularly at unfavorable magnetic aspect angles, and (3) radar and rocket studies of collisional ion cyclotron waves at altitudes of about 150 km during periods of very large field aligned currents. In general the above studies are concerned with motions of the ionosphere and the presence of waves and other irregularities in it, which have importance both from the point of view of increasing our fundamental understanding of processes occurring in ionized gases (making up 99% of the material of the universe) and of the effects of the propagation of radio waves for communication and of the effective operation of radar systems.